Investigations in Gravitational Wave Sources and Numerical Relativity

Two problems in gravitational physics will be studied, each of vital
importance for the current efforts to detect gravitational waves and
characterize gravitational wave sources. First, gravitational waves
from core-collapse supernovae will be analyzed using a
three--dimensional computer code based on the Newtonian/quadrupole
approximation. This work will determine whether dynamical instabilities
succeed in producing a highly elongated or fragmented inner core, with
a correspondingly large gravitational-wave signal. Second, the
``Einstein--Christoffel" hyperbolic formulation of general relativity
will be analyzed with particular emphasis on developing a stable,
accurate numerical algorithm. Progress will be made toward developing a
numerical relativity code that encorporates a high-resolution shock
capturing scheme.

Such codes will be needed to investigate the role that gravitational
shocks might play in astrophysical systems. Also, these simulations
constitute an important step toward determining whether gravitational
waves from supernovae can be detected by receivers such as LIGO.